MRI: Acquisition of Accessories to Upgrade A Confocal Microscope Used for Research and Teaching at Wake Forest University

This Major Research Instrumentation award funds the acquisition of system upgrades for a Zeiss LSM 710 confocal microscope at Wake Forest University. The instrumentation enables faculty, postdoctoral fellows, graduate students, and undergraduates to study and publish important findings on brain plasticity; hormonal regulation of plant development; stress response systems, gene expression, and protein localization in Drosophila; mechanisms of DNA repair, protein complex formation, protein oxidation, and posttranslational modification. The requested accessories permit live-cell, dynamic, and multi-label experiments and enable more educational opportunities. Consistent with WFU's mission to strengthen connections beyond campus, the LSCM is also used by regional investigators for research and education, and is utilized during outreach workshops. The results of these research and teaching efforts will be broadly disseminated through abstracts and peer reviewed publications, as well as by active participation of students and faculty at professional meetings.